RUI: Design and Analysis of Number Theoretic Algorithms

This project will investigate the following problems: (1) Determine explicit bounds involving primitive roots and Artin's conjecture that are useful in the analysis of several number-theoretic algorithms under the assumption of the extended Riemann hypothesis. (2) Study two problems involving GCD algorithms. The first is to design and implement genetic algorithms for the extended GCD problem. The second is to analyze the left- and right- shift k- ary GCD algorithms, including determining average-case behavior and studying the so-called "spurious factors" introduce during the main loops of the algorithms. (3) Design, analyze, and implement algorithms for computing the Jacobi symbol based on Lehmer's Euclidean GCD algorithm. Undergraduate students will be involved in this research, in particular in the design and implementation of algorithms in the last two problems above. ***